Creep of Pyroxene Single Crystals

A suite of high-temperature creep experiments will investigate the rheology of single crystals of clinopyroxene (diopside and hedenbergite) and orthopyroxene (bronzite and enstatite) under carefully-controlled thermodynamic conditions at 1 atm. total pressure, to determine intracrystalline flow laws and mechanisms of deformation appropriate to these minerals for extrapolation to upper mantle conditions. In particular, the dependence of creep rate on oxygen partial pressure and on the activity of silica will be measured. Olivine is generally regarded as both the most abundant and weakest mineral in the upper mantle, so that the rheology of the upper mantle is usually modelled using the results of high-temperature deformation experiments on olivine single crystals and polycrystals. However, in a chemically heterogeneous mantle, deformation in regions with a locally high pyroxene content, such as subduction zones, will be controlled by the deformation of pyroxenes.